The Introduction of Interactive Video and Environmental Studies into the Undergraduate Biological Sciences Curriculum

The aim of this project is to enhance the educational opportunities available to students and to increase the instructional efficiency of the courses. A video microscopy system is being used to demonstrate microscopic specimens and to teach microscopy techniques. The macroscopic capabilities of the system are used to identify anatomical structures and illustrate dissection techniques. An environmental chamber enables students to examine effects of environmental factors on biological processes. Ecology study chambers allow students to observe intractions between organisms in an controlled environment and to perform pollution studies. Spectrophotometers are used for hemoglobin determination, enzyme kinetics, and water quality testing. Computers are used with the video microscopy system to allow students to observe structures and techniques at their own pace, to quiz themselves at their own pace, and to design an interactive audiovisual presentation with video discs. This equipment allows students to engage in a wide variety of laboratory exercises and enhances the efficiency of laboratory instruction. The college is contributing an amount equal to the award.